International Symposium in Symbolic and Algebraic Computation; Kiev, Ukraine; July 1993

ISSAC is the premier annual conference of the computer algebra community. Developing a symbolic computation system raises many interesting theoretical issues in both computer science and mathematics, and the ISSAC conferences have traditionally been a meeting ground for implementors and theoreticians. Furthermore, as symbolic computation systems have become more sophisticated, their users have responded by employing them in more complex ways. The ISSAC meetings have provided a scientific forum for beneficial interaction between the designers of symbolic systems and the users of them. So not only are the theoretical computer scientists and systems implementors present, but so are very mathematically sophisticated physicists, engineers, astrophysicists, geophysicists, and other mathematical scientists. This grant is to support the travel of American students and researchers to participate in this conference.